Base Loci of Linear Series and Diophantine Approximation

From the most abstract concepts of theoretical physics to the
cryptosystems used by millions of people every day (often without realizing it) ,
algebraic geometry and number
theory have a genuine and vital presence in twenty-first century life.
This proposal seeks to develop tools of algebraic geometry with a view
toward number theoretic applications. Of central importance is the
problem of finding rational or whole number solutions to polynomial
equations, the most famous example of which is Fermat's Last Theorem
recently established by Wiles. The new geometric techniques developed under this
proposal will be applied to limit the number of rational solutions of a more general
polynomial equation.

Many situations in diophantine approximation produce a linear series on a
smooth projective variety. Often there are arguments employing vanishing theorems and intersection theory that force the series to move, showing the base locus to be empty. On the other hand, varous hypothetical assumptions-for example, assuming that there are infinitely many rational points on a curve of genus at least two, or assuming that there are good rational approximations of an algebraic irrational number--
force the linear series in question to have a non-empty base locus. The resulting contradiction
shows the hypothetical assumption to be false. This line or reasoning has been used to
establish Mordell's conjecture and Roth's theorem respectively, and
will be applied in this project to study higher dimensional problems, such as the
Schmidt subspace theorem and Faltings' theorem on rational points of
subvarieties of abelian varieties, with a long term goal of extending and
or strengthening these theorems. The key algebro-geometric background
required in these arguments is a detailed study of numerical properties of
the base locus of a linear series. In particular, a key question is
whether or not Seshadri constants control the existence of global sections
of a line bundle even when the bundle is not positive.